Research in Elementary Particle Physics

This grant supports a group of four physicists from Vanderbilt University for work on several Fermilab experiments and for design and prototype work on the neutrino astronomy experiment DUMAND (Deep Underwater Muon and Neutrino Detector). The Fermilab experiments are: E743, a study of charmed hadron production; and E683, a study of jets produced by high energy photons. One of the Fermilab experiments uses high energy particles to create and study some of the heavier and more unusual quarks--the quarks which carry the characteristic called "charm". Another experiment directs high energy photons at protons; careful study of the "jets" of particles produced in some of the interactions will reveal some of the characteristics of the "gluon" particle, the quantum of the force field which holds protons, neutrons and nuclei together. The work on DUMAND is for a proposed detector for observation of ultra-high energy neutrinos from astrophysical sources.